RIA: An Adaptive Spectral Element Method for the Solution ofTransient Partial Differential Equations in Complex Geometries

The main objective of this research initiation project (RIA) element algorithm for the solution of time dependent partial differential equations to simulate physical phenomena in complex geometries. The adaptive method will ensure optimal allocation of computer resources in terms of storage and cpu time by automatically refining, coarsening or reconstructing the geometric mesh used to discretize the equations in space throughout the calculation. The method wil be developed ina general way, in that the innovations will be independent of the geometry and equations to be simulated. This approach will benefit the many fields in which the application of high order spectral methods can be used for simulation of complex physical phenomena. THe main tasks are the construction of a rule-based system for refinement, the development of a scheme for dynamic allocation of space for the changing mesh connectivity information, the development of a mesh optimization criterion, ensuring that the mesh alteration is time-accurate and conservative and finally improving the current error estimators and preconditioners. The research entails theoretical and computational work and will include a number of test and novel simulations. The adaptive formulation of the spectral element method is aimed at increasing the flexibility and range of capabilities of high order methods in general. High order methods provide highly accurate simulations with very fast rates of convergence and are typically used in the direct simulation of basic physical phenomena. The proposed research will allow high order methods to deal with "real" engineering problems, rather than idealized research problems, by reducing the needed computer resources by one to two orders of magnitude.//